U.S.-Poland Research on Complex Dynamics of Random Systems (Solid State Physics)

The primary objective of this U.S.-Poland research project between Dr. Jayanth Banavar of the Pennsylvania State University and Dr. Mark Cieplak of the University of Warsaw is to characterize the glassy behavior of oxide super-conductors, with emphasis of improving our basic understanding of mechanisms known as frustration and pinning. The researchers see these mechanisms as only part of the physics of relaxation but aim to clarify their role in the expectation that successful results may yield 1) a scaling theory for superconducting glasses and 2) models showing self-organized criticality that demonstrate a generic behavior common to the spatiotemporal dynamics of diverse systems. The researchers hope that their findings will contribute to a unified theory of relaxation that encompasses the complex dynamics of random (non-equalibrium) systems. This project in solid state physics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.